Mathematical Sciences: 1991 SUNYA Topology and Group Theory Conference

This award provides partial support for the third annual SUNYA Topology conference held over the Columbus Day weekend, 1991. The conference focusses on combinatorial group theory and low dimensional topology. The invited speakers are Steve Gersten, Elia Rips, Joan Birman, Thomas Farrell, Allen Hatcher and James McCool.